Mathematical Sciences: REU: Graph Theory

This Research Experiences for Undergraduates award will support eight students in a research program focusing on mathematical problems in graph theory. The highly visual and intuitive nature of this subject makes it particularly suitable for students just beginning research careers. There are many opportunities for algorithmic thinking, computer experimentation and combinatorial applications. Several graph theorists as well as other colloquium speakers will visit during the research period as part of the scheduled activities. Research topics include studies of how graph invariants determine other invariants in product graphs, T-coloring of graphs, separation numbers of graphs and determination of the orders of graph subtrees. Students are expected to have an oral presentation ready at the end of the project. They will be encouraged to prepare their results for submission to research journals. The entire group will attend the Pi Mu Epsilon summer meeting at Miami University. In addition to the principal investigator, two other faculty and two graduate assistants will act as advisors.